Midwest Several Complex Variables Meeting

This award will support participants in the 2021 Midwest Several Complex Variables conference, to be held April 16-18, 2021 at the University of Notre Dame (dates to be confirmed or revised in January 2021 based on developments associated with the Covid-19 pandemic). Complex analysis is an extension of the Calculus that accommodates imaginary as well as real numbers, and several complex variables is the part of complex analysis that is applied to higher dimensional problems featuring imaginary numbers. Despite the terminology 'imaginary' numbers have actually increased the applicability of Calculus and are ubiquitous in areas such as electrical engineering and signal processing. Important recent work in several complex variables touches on geometry, differential equations, and dynamical systems among others. The conference will afford a valuable opportunity to explore this work and allow for interactions between senior mathematicians and early career researchers. Particular attention will be paid to broadening participation among graduate students and early career mathematicians.

Several complex variables has been a strong suit of mathematics departments at Midwestern universities for several decades. The Midwest Several Complex Variables meetings, hosted at various midwestern universities since the 1980's, reflect this strength and have done much to help sustain and amplify it. The proposed conference will continue this tradition, which has expanded to include mathematicians from departments outside the midwestern region, including international participants. Topics represented at the meeting will include complex function theory, the Cauchy-Riemann operator and complex Neumann problem; complex, CR and conformal geometry; complex dynamics; and pluripotential theory. More details can be found at the conference website:
https://www3.nd.edu/~conf/mcsvc2021/